Model Theory and Analysis

9970009
Henson
This project emphasizes mathematical logic in relation to other
areas of mathematics and computer science. C. Ward Henson will use
methods from logic to solve problems within these areas and will use
logic as a basis for formulating new concepts and posing new problems
within them. This project has the following main aspects: (a) further
development of Henson's logic for structures that are based on metric
spaces, especially on Banach spaces, and continued application of this
theory to problems in functional analysis; (b) study of exponentiation
and other elementary functions from the logical point of view; and (c)
continued investigation of the computational complexity of logical
decision problems, especially those arising in the most central areas
of mathematics.
During the past 40 years or more, techniques from logic have not
only clarified the foundations of mathematics, but they have contributed
new tools for solving mathematical problems. These tools have been
especially effective in those areas of mathematics that are close to
algebra and number theory. In this project, C. Ward Henson aims to
make those tools from logic equally effective in the areas of mathematics
that are close to topology, geometry, and analysis.
***